CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies: Project Technovision X-33 Planning Year

9616563 Campbell, Thomas Garcia, Jorge Bell High School CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies Program: Project Technovision X-33, Planning Year The Los Angeles Unified School District has been awarded funding in the amount of $50,000 for a period of 12 months for a planning grant to study the effect of access to technology on the education of a traditionally underrepresented, culturally and linguistically undeserved student/parent population. The proposed research will lead to the formation of policy and curricular changes which will significantly affect education in urban, low-income communities into the twenty-first century. The project will involve the collaboration of many different entities: K-12 teachers and administrators; university researchers and professors; governmental organizations; and private business. During this planning year, approximately 15 specific collaboratively development projects will be tested for feasibility and eventual implementation. Data and analyses gathered from these projects will be disseminated widely, using the full resources of the Internet and the World Wide Web.